Partial Support of an International Workshop, "Applications of Sedimentary Geology and Paleontology into the 21st Century"; October 16-20, 1994; Snowbird, Utah

9306395 Ashley This workshop will help clarify the utilization of sedimentary geology and paleontology (SG&P) in understanding and resolving environmental and resource challenges in the early 21st century. Goals are: 1) identify future applications of SG&P in terms of careers and needed skills; 2) identify research advances needed to facilitate the use of SG&P, and formulate a strategy for fostering these advances; 3) provide advice to the (higher and continuing) education communities on anticipated needs in curricula and facilities; 4) develop a strategy for demonstrating the value of SG&P to potential users.